Workshop on Integrating Integrability into Mathematics and Science, October 29 - 31, 1999, Tuscon, Arizona

9971765
Ercolani

This award will support participants at the Workshop on
Integrating Integrability into Mathematics and Science to be
held at the University of Arizona from October 29-31, 1999.
Over the last 30 years the modern theory of integrable
systems has proved to be a strongly effective conduit for
transferring models and ideas from physics and applied
mathematics to core mathematics and vice versa. This is
evidenced by recent developments in inverse spectral theory,
geometry of field theories, statistical mechanics, dynamical
systems, coherent structures in nonlinear phenomena, and
weak turbulence. The integration of new methods from
integrable systems theory into each of these disciplines has
been rapid even in those areas where it has had a traditional
presence. The purpose of the meeting will be to gain a broader
perspective on the use of integrable systems theory across
these disciplines and to examine parallel developments as well
as ways in which ideas from one field could be used in
another. The workshop would bring together researchers who
work at the heart of these developments to address issues that
transcend their specific disciplines. The talks will emphasize
ways in which ideas and methods from integrable systems
theory will be relevant to mainstream developments in
mathematics and science.